Minority Student Support

This award is made to the Chairperson, Department of Geological Sciences, University of South Carolina, Columbia, S.C. 29208 to support the graduate work of Angela T. Daniels, while Ms. Daniels is a student in good standing at the University of South Carolina. The funds are to be managed by the P.I., and NSF intends to support the student for up to three years, provided the Chairperson confirms satisfactory progress toward a degree in annual reports to NSF.